Conference Support for IRMMW-THz 2011: The 36th International Conference on Infrared, Millimeter, and Terahertz Waves, held in Houston, TX on October 2-7, 2011.

This proposal requests partial support for participation of students and young researchers
in the 36th Annual International Conference on Infrared, Millimeter, and Terahertz Waves.
The conference will be held in Houston TX on October 2-7, 2011. NSF support will provide
opportunities for young researchers to showcase their recent results and interact with experts
in the various disciplines which fall within the conference scope. The requested funds will
specifically be used to support travel and registration costs for US researchers, and will
be targeted towards under-represented groups.
This conference has recently grown rapidly and is now the leading forum for researchers in
all areas of long-wave electromagnetic science and technology. Topical areas span a wide
range of disciplines, including aspects of physics, chemistry, biology and numerous engineering
disciplines. The conference continues to benefit from the technical co-sponsorship of the
IEEE Microwave Theory and Techniques Society, which oversees the publication of the conference
proceedings.
The broader impact of the proposal is fostering an environment of technical discussions among
numerous different communities of theorists and practicing scientists and engineers. In addition
the conference organizers are dedicated to encouraging participation by young US scientists
and researchers, especially from under-represented groups. This will be accomplished through
reduced conference registration fees for students as well as by providing targeted travel
support enabled by this NSF proposal. By fostering the careers of younger researchers, this
proposal will benefit the future growth of the field of long-wave science and technology.